RUI: Development of a Sensing and Signal Processing Technique to Facilitate Closed-Loop Fuel Injection Control for Diesel Engines

The work proposed in this project addresses the development of a sensing mechanism for real-time detection of fuel quantity and rate applied to the closed-loop fuel injection control for diesel engines. A novel approach will be pursued involving rapid signal analysis of the needle lift of a modified injector, using an intelligent sensor interface to the main engine controller. The project includes the experimental validation of the sensing method, the study of improved computer architectures for the intelligent sensor interface, and the evaluation of the potential of closed-loop fuel control for improving the emissions and operational characteristics of diesel engines.